SGER: Transnational Public Health Informatics Research: US-China Collaboration

This public health informatics Small Grant for Exploratory Research is a small-scale, exploratory, high-risk proposal that is potentially transformative in its research collaborations between the US and China. The proposal team is building on the momentum gained from two US-China public health informatics workshops held in Beijing in March 2008. New partnerships are expected to emerge. The outcomes have the potential to transform approaches to public health informatics, not only in US and China, but potentially across the globe, in particular in exploring transnational social networks and taking advantage of the kinds of data collection and integration methodologies and technologies employed by the two countries' public health agencies. It affords the opportunity to provide new and longer-term research and educational programs between US and Chinese institutions and practitioners.